Development of nanoscale hydrogels for oral delivery of siRNA

1033746
Peppas

The objective of this proposal is to synthesize polycationic nanoscale hydrogels capable of delivery of small interfering RNA (siRNA) to disease targets, specifically those along the gastrointestinal tract. The research plan describes the characterization and optimization of a number of variables that will ultimately affect the suitability of the hydrogel Oral delivery of siRNA using pH-responsive nanogel carriers promises to improve the treatment of various gastrointestinal diseases because oral delivery is more efficient and less painful than intravenous and intraperitonealI injections. The applicant manages a lab that has 40 % women and 20 % minority students. As part of the outreach to K-12 students, the applicant is offering 10 high school students summer internships.